Group Travel to the IFMBE Meeting in Helsinki, Finland

Partial travel support is provided for a group of investigators to attend and present papers at the XIV International Conference on Medical and Biological Engineering and the VII International Conference on Medical Physics to be held in Helsinki, Finland in August 1985.